Mathematical Sciences: Exchangeability Theory and its Ramifications

The principal investigator will continue his work within the general area of exchangeability. His general interest ranges over all aspects of the theory, from the basic foundations and representation theorems, via specific properties of exchangeable processes, to a variety of applications and extension to other areas of probability theory. The present proposal is focused on some specific problems involving multivariate representation theorems and their relation to multiple stochastic integration, the notion of spreadability or subsequence invariance, the representation of stable stochastic integrals and properties of exchangeable interval partitions, their local time random measures and Palm distributions.